Modernization of Plant Morphology, Anatomy, and Development Laboratory Instruction at Miami University, Oxford, OH

9452516 Smith-Huerta The objectives of this project are to improve undergraduate laboratory instruction in plant morphology, anatomy, and development in the Department of Botany at Miami University in Oxford Ohio. This project develops a model for the incorporation of advanced instrumentation and discovery-based teaching methods into these courses which have traditionally been taught without the benefit of modern instrumentation. The proposed improvements will impact most heavily five different morphology/anatomy courses with a total enrollment of about 200 undergraduates. The project will also benefit other courses in general botany, plant physiology and plant ecology. This instrumentation will also be used by undergraduates to conduct independent research projects and in their capstone research experiences. The main focus of the improvement will be the incorporation of modern instrumentation, image processing, and computers into the existing discovery based lab experience. Undergraduate majors, non-majors and pre-service teachers will be stimulated and challenged to operate advanced instrumentation and develop problem solving skills using the same techniques and equipment as research plant scientists.